REG: Equipment Upgrade for Development of Holographic PIV

ABSTRACT The Department of mechanical Engineering at Kansas State University (KSU) will acquire and upgrade equipment for development of Holographic Particle Image Velocimetry (HPIV). A Laser Flow Diagnostics Laboratory, with its primary goal being the development and application of HPIV, has been set up in the Department. The upgrade will enable off-axis HPIV and the establishment of a suitable data processing system. The upgrade consists of adding injection seeding and an improved transverse-mode option to the existing pulsed laser to convert it to a highly coherent laser that can record holograms of three-dimensional particle fields, matching the wavelength of the hologram reconstruction laser to that of the recording laser, and setting up an open-architecture heterogeneous optical-digital data processing system. The establishment of HPIV will bring the capability of providing instantaneous high-resolution three-dimensional (3D) flou velocity field data. Its establishment will contribute to our understanding, modeling and controlling of turbulent and complex flows which are of fundamental and technological importance.